SBIR Phase I: Ozone Sensor for Environmental Monitoring

*** 9661410 Prohaska This project will evaluate the feasibility of a miniaturized ozone sensor for the resolution of parts per billion (ppb) concentration changes in the atmosphere. The proposal is based on a recent breakthrough which utilizes established sensor technology in combination with solid-state mass production techniques to form low-cost miniaturized sensors with superior measurement capabilities. The development of this high-resolution device will require detailed understanding of sensing materials, measurement and fabrication processes, as well as possible causes for signal distortions. The proposed Phase I studies are designed to provide necessary information and data for a successful Phase II development. During Phase II it is planned to integrate the ozone sensor with other miniaturized toxic gas sensors, ie. for nitrogen oxides and sulfur dioxide, onto highly selective, low-cost, low-energy consuming, light weight, multiple sensor devices for environmental monitoring. Phase II product development is planned to be performed together with corporate partners who are established in the environmental and safety market, and will support the Phase III product engineering and manufacturing transfer. ***